MGR Honorable Mention: Andrea Jackson

This special award will give Andrea Jackson additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.